Electrosensory Processing in Laminated Midbrain Structures

The long-term goals of this research program are to understand how sensory information is coded and processed in the brain and how neural networks have been modified during evolution to produce new behaviors. More specifically, a primary objective is to understand the functional significance of "laminar" organization in the brain, i.e. many layers of cells. The human cortex is an example of such laminar organization. To learn whether neurons of particular layers have different functional roles, their selectivities for specific sensory information and morphology must be determined. Electric fish are well-suited for obtaining such information since behavioral studies have already provided insights into this sensory system and electric signals are easily produced in the laboratory. Electrosensory information processing occurs within laminated regions of their brains and microelectrodes can be inserted into neurons within these layers. Such information will have general significance to understanding how sensory information is processed in laminated structures within more complex brains, as well.